Ion-Ion Plasmas: Fundamentals and Applications in Semiconductor Manufactoring

Abstract - Economou ECS - 9713262 This is a combined theoretical/experimental investigation of ion-ion (virtually election-free) plasmas in inductively coupled plasma (ICP) sources. Topics addressed include the formation and spatiotemporal dynamics of ion-ion plasmas in pulsed discharges at very low pressures, the mechanism of negative ion extraction and acceleration under the influence of an externally applied bias, and etching by ion-ion plasmas, especially the contribution of negative ions. Both fluid and kinetic models are developed in a hierarchial manner from analytic to full-scale two-dimensional numerical models. Experimentally, the temporal evolution of negative ions, positive ions, and electrons in pulsed chlorine ICP discharges is measured for pressures in the 1 to 20 millitorr range. The flux and energy distribution of negative and positive ions, and the etching induced by each, are also measured. Ion-ion plasmas are formed in the late afterglow of pulsed discharges in electronegative gases. Such systems are known to produce superior quality etching when used in microelectronic device manufacture. This study provides fundamental insight into this potentially valuable but poorly understood system.